Public Attitudes to Whales and Whaling: An International Study

This study is an international analysis of public attitudes towards contemporary whale management and an assessment of public knowledge about whales and whaling. Questionnaires will be administered in the United States, Australia, Britain, Germany, Japan and Norway. The research is intended to obtain accurate information about public attitudes on whaling. This information is essential for the development of national policy decisions, and the formulation of whale management policies by international bodies, such as the International Whaling Commission.